Maintenance, Authentication and Diversification of the ATCC Reference Collection of Protozoa

This award renews support for operation of the Protistology Collection of the American Type Culture Collection. The collection conserves and distributes a comprehensive range of authenticated protozoa, algae and associated strain data for use in research and education. The collection presently maintains approximately 1886 strains of protozoa representing 231 genera and approximately 500 species and, in addition, 222 strains of algae representing 66 genera and roughly 120 species. Over the last five years, the Collection has provided an average of 1150 cultures each year at a modest charge to users. The intellectual merit of this project lies in the characterization of new strains of protists so that new, as well as existing, well-characterized protest strains are available to users The broader impact of this project is to expand the holdings of Protistology Collection in a targeted fashion to provide useful and scientifically relevant living stocks of protists to qualified users.